Dissertation Research: Ethnicity, State Intervention and Agricultural Intensification in the Ziz Valley, Morocco

LBP:\A9321194 Park This project supports the dissertation research of an anthropology student from the University of Arizona, studying the impact of ethnicity and state intervention on small-scale, intensive irrigated agriculture in Morocco. Using a combination of archival and ethnographic research, the student will study two villages, one with a sure source of irrigation water from a water control project, and one with the traditional insecure sources of water. The student will interview members of the three dominant ethnic groups in these villages to investigate how social class, ethnicity, and access to development programs interact to affect the productivity of small-holder farming. This research is important because traditional farmers in many parts of the world are involved with state irrigation programs. Increased understanding of local cases such as this one, of how ethnic differences and social-economic class position within the village affect the farmers' ability to take advantage of state- sponsored programs, and whether these programs actually increase productivity, will provide valuable information to economic development planners. ***